Preattentive and Attentive Visual Information Processing

This research will explore visual processing of complex displays. The basic question addressed is whether processing in such displays is serial or parallel. In other words, the research asks what determines the extent to which people can grasp or apprehend several objects simultaneously (parallel processing), as opposed to one object at a time (serial processing). A necesary prerequisite to exploration of the determinants of parallel and serial processing is quantitative methods that will permit characterization of performance in a particular situation as parallel or serial. Development of such methods has proven to be a difficult task. Several methods proposed in the past to characterize processing mode have been shown to be problematic. This research will explore the use of several "diagnostics" that should allow a clear determination of processing mode when they are applied simultaneously. The first part of the research will consist of an effort to validate the potentially useful diagnostics. Following this validation, the research will turn to exploration of what determines whether search is parallel, serial, or perhaps something else in between. One crucial variable is the complexity of the stimulus. Processing should be parallel when the subject has an easy task such as locating a single red target in a background of blue distractors, but what will happen if the target is defined as red and square, and the background consists of red circles and blue squares? Such conjunctively defined targets have sometimes been reported to require serial processing; if the present research confirms (or refutes) this with new and improved diagnostics it will have important theoretical repercussions. In addition to stimulus complexity, this research will explore the effects of several other factors, such as the distance between the elements of a display and the spatial patterns formed by the elements of a display. It is important to know about the effects of these factors for two reasons. For one, they are of practical importance in designing equipment that maximizes effective performance when people are interacting with machines. For another, analysis of these effects will help researchers to develop theoretical models of visual processing.